PostDoctoral Research Fellowship

This is a Post Doctoral Fellowship project for Dr. Medea Csobas-DeHass to study with Arctic Ethnohistorian Dr. Sergei Kan at Dartmouth College. During her tenure at Darmouth, Dr. Csoba-DeHass would work closely with the Sugpiaq communities in the Lower Kenai Region of Alaska to compile an ethnohistory of the Sugpiaq that would include an analysis of their epistemological views of on their own cultural history. In addition, Dr. Csoba-DeHass would create K-12 educational materials for use in local schools. While at Dartmouth University she has been invited to participate as a visiting fellow in the Institute of Arctic Studies, which will give Dr. Csoba-DeHass the opportunity to participate in IAS activities that highlight Arctic scholars and their research.